Statistical Learning and Inference for Single-Cell RNA Sequencing

Single-cell genomics is an emerging technique that has become an indispensable tool for understanding cellular diversity and cell activities. Among the various single-cell sequencing technologies, single-cell RNA sequencing (scRNA-seq), simultaneously measuring tens of thousands of RNAs inside each individual cell, is the most mature and widely used technology. This project aims to develop new analytical tools for scRNA-seq with explicit and coherent statistical frameworks to provide reliable uncertainty quantification and inference. At the same time, the new tool will retain the scalability and user-friendly features in existing algorithmic-based methods. The PI will focus on building probabilistic models for machine learning frameworks such as deep learning and address new challenges to account for biological randomness and technical noise in scRNA-seq. The PI will develop open-source software for analyzing scRNA-seq data to help scientists understand cell development, the mechanism of gene regulation, and cell-type-specific features of common diseases. Because of the interdisciplinary feature of this project, it will also train both graduate and undergraduate students within and outside statistics to become future scientists in the fast-evolving area of applied statistics and computational biology.

The PI plans to focus on three research problems that are unique to the analysis of single-cell data: trajectory inference, cell type deconvolution, and gene-gene co-expression / co-bursting. For trajectory inference, the PI will incorporate a hierarchical mixture model into a deep neural network to infer trajectories shared by cells from multiple sources. In the cell type deconvolution problem where scRNA-seq data are used as references to estimate cell type proportions in bulk samples, the PI will derive asymptotically valid confidence intervals of the estimated cell type proportions without parametric assumptions and account for three major uncertainty-inflation factors: the technical noise, biological heterogeneity across individuals, and dependence across genes. Finally, in the gene-gene co-expression / co-bursting analysis, the PI will estimate the true gene-gene correlation and co-bursting pattern from noisy observed data and design a scalable multiple testing framework that can efficiently find gene pairs that are co-expressed or co-bursted. The PI also aims to link the co-expression and co-bursting signals with the enhancer-promoter contacts in the three-dimensional genome structure to understand causal mechanisms of transcriptional regulation.